UC San Francisco Science Institute for Elementary Teachers

The University of California, San Francisco Science Institute for Elementary Teachers (UCSF City Science Project) is an integral component of the San Francisco Unified School District's comprehensive plan for K-5 Science Program Improvement. The Project will be responsible for the inservice education of 100 teachers over four years. Through three years of month long education sessions, where the content of elementary science will be presented through sessions modeling excellent hands-on science teaching, these teachers will become the UCSF Science Partners. Working in conjunction with an experienced leader in their school, these newly trained teachers will be responsible for making significant changes in their school's science program. The 100 UCSF Science Partners will exhibit leadership by supporting their fellow classroom teachers as they initiate the city's new hands-on curriculum. In partnership with K-5 Science Support Teachers and the City's Science Specialists, the UCSF Science Partners will be released to provide presentations, demonstrations and/or team-teaching with colleagues during the Site-Institute at their own school. In addition, the 100 UCSF Science Partners will be teamed by grade levels to provide workshops on specific grade level Model Science Units to teachers throughout the system. The cost sharing for the project will be 47%.